The 18th International Conference on Nucleation and Atmospheric Aerosols (ICNAA); Prague, Czech Republic; August 10-14, 2009

This award provides travel funds for US students and a small number of research scientists with unusual financial needs to attend the 18th International Conference on Nucleation and Atmospheric Aerosol (ICNAA) to be held in Prague, Czech Republic. The conference is one of the premiere regular international meetings concerning the formation, physical and chemical properties, transformation and cloud impacts of atmospheric aerosol particles. The meeting offers a unique opportunity for young scientists to share research results and have discussions with an international cross-section of experts in their fields.